Conference in Continuum Mechanics and Conservation Laws

NSF Award Abstract - DMS-0087338
Mathematical Sciences: Conference in Continuum Mechanics and Conservation Laws

Abstract

0087338 Dafermos

This award supports U.S. participants (invited speakers, postdoctoral researchers, and graduate students) in the Conference in Continuum Mechanics and Conservation Laws on April 27-29, 2001. A major goal of the conference is to bring together leading international researchers in the fields of conservation laws and continuum mechanics for discussion of recent advances at the boundaries of the fields.

Continuum mechanics is a scientific area with well-developed mathematical theory and important applications to engineering. The theory of hyperbolic conservation laws has been developed in conjunction with applications to gas dynamics, magnetohydrodynamics, and nonlinear elasticity. In recent years there has been rapid progress in areas with connections to both subjects, such as the kinetic theory of gases, plasma physics, the mathematical theory of semiconductors, and general relativity. This conference is a timely opportunity for workers in these fields to discuss important recent results.